Undergraduate Diversity in the Society for the Study of Evolution and the Society for Systematic Biologists

0227714
Edwards

The Society for the Study of Evolution (SSE) and the Society of Systematic
Biologists (SSB) are the premier Societies in the US for discussion and
dissemination of ideas relating to evolution. This proposal will provide
travel costs, registration costs, and lodging costs to approximately 15
minority undergraduates for the annual meetings of these societies for the
years 2003 - 2006. These undergraduates will also present posters at the
meetings. The proposal is an outgrowth of a pilot program conducted at
the 2001 meetings which raised awareness and enthusiasm for the need to
broaden the undergraduate base at the meetings. During the meetings the
undergraduates will be mentored by graduate student and faculty mentors,
who will help the undergraduate network at the meetings, help demystify
talks for the undergraduates, and generally make the students feel more
welcome at the meetings. There will also be an official mentoring session
for undergraduates, consisting of a 'pep-talk'/seminar that will help
encourage the students to prepare for careers and/or graduate school in
evolutionary/environmental biology. These activities will be supplemented
by social activities not covered by this grant, as well as further efforts
on the part of both societies for encouraging undergraduate participation,
such as reduced registration fees, daily fees for attendance by students
at the host site, and an undergraduate poster session. These activities
will help increase the amount of minority and other undergraduate
participation at the meetings, and ultimately should have a positive
effect on minority participation in evolutionary biology nationally.